Justification for, and Developments of, Solution Concepts for Games

This project is part of mathematical economics, a crucial body of research that defines the analytical framework for rigorous economic reasoning. More specifically, this project extends the investigator's axiomatic characterizations of the rationality of players in non-cooperative games. The players' rationality is defined in terms of single person decision theoretic axioms and players are allowed to have "lexicographic" beliefs. This approach is extended (1) to a more general single person framework; (2) to incorporate into the beliefs the notion of forward induction rationality; (3) to allow for non expected utility preferences in order to examine the applicability and relevance of such preferences which have recently been developed quite extensively; (4) to incorporate both "satisficing" and "cautious" behavior within a unified approach; and (5) to allow for players to signal their intended strategies by adding a preplay communication device to a game. The overall objective of this project is to increase our understanding of solution concepts prevalent in the applications of game theory, and to apply this to see how certain properties can be incorporated into non-cooperative game theory. This is important because non-cooperative solution concepts of games, in particular Nash Equilibrium, are often applied to economic models. By examining the assumptions underlying several of these solution concepts, this project makes explicit the assumptions underlying predictions of the economic models which apply these game theoretic tools. Since for most economic models there are multiple equilibria, examination of the assumptions underlying the different solutions helps the analyst select among the equilibria and provides a unified way to make sharper predictions in many models.